Presidential Young Investigator Award

The ever increasing demand on power processing systems for improved efficiency and reliability, smaller size and weight, coupled with continuous growth in dimension and complexity of payloads, has focused attention on a major deficiency - the ability to design, test and trouble-shoot large-scale power systems. One of the major difficulties in large-scale system analysis involves the subsystem interaction problems. As a system becomes more complex, the interactions among highly nonlinear components and subsystems create a large degree of uncertainty in the system response even though each component may be well understood and documented. Thus, the need of a comprehensive power system modeling tool that can actually predict a system's local and global behaviors is most critical since the elaborate design verification through integrated systems hardware testing is prohibitively expensive or often impossible. The main objective of the research in this phase is to develop a computer-aided comprehensive large-scale power processing system modeling tool using the multi-port coupling method to facilitate the design and analysis of present and future power processing systems, particularly in the area of satellite and space power systems, main frame computers, and communication power systems. Components of power processing systems are inherently nonlinear. As a result, their behaviors, due to large-signal and small-signal disturbances, can be quite different. Employing the comprehensive modeling tool, dc, small-signal and large-signal dynamics will be analyzed for both local component level and global system level. The interaction analysis will be performed to aid the system level design and trouble-shoot.